Conference: Gordon Research Conference on Nonlinear Optics and Lasers to be held in Tilton, New Hampshire on July 30- August 4, 1995.

9526736 Storm This proposal requests a grant of $6,000 in support of the 1995 Gordon Research Conference on Nonlinear Optics and Lasers to be held at the Tilton School, Tilton, New Hampshire, July 30 - August 4, 1995. As in previous years, the purpose of this conference is to provide an informal forum for the presentation and discussion of new work on selected topics in nonlinear optics quantum electronics and lasers, and their applications to physics, chemistry and engineering. An informal atmosphere with a strong emphasis on discussion is intended to encourage the exchange of ideas in a manner not possible at regular meetings of professional societies. Particular effort is made to provide an opportunity for graduate students and postdocs to interact in this informal atmosphere with foremost experts in the field. A total attendance of approximately 135 scientists from universities, industry and government is anticipated. It is proposed that the estimated total expense for the conference of 440,000 be shared by the National Science Foundation ($6,000), the Office of Naval Research ($5,000), the Air Force Office of Scientific Research ($10,000), the Army Research Office ($4,000). The remainder ($15,000) is obtained from registration fees paid by Gordon Conference attendees. The National Science Foundation funds will be used to assist graduate students and selected junior faculty who, because of limitations of their own sources of funding, require financial assistance to attend the conference. No honoraria will be paid. ***